POWRE: Time-Frequency Analysis of Signals With Non-Linear Structures

EIA-0074663
Papandreou-Suppappola, Antonia
Arizona State University

POWRE: Time-Frequency Analysis of Signals with Non-Linear Structures

This proposal focuses on investigation of the feasibility of obtaining new quadratic time-frequency representations that are matched with non-linear group delay, while exhibiting a maximum concentration and reducing the effect of cross terms. In addition, this work will address a new line of research in analyzing the difficult case of multicomponent signals with different types of linear and/or non-linear structures present simultaneously. The proposed methodology will involve a matching pursuit dictionary with basis functions of different types of group delay.